GOALI: High Throughput Experimentation for Reaction Optimization

The GOALI project will integrate research groups at the University of Pennsylvania and members of the Merck, Rahway, Department of Process Research and the Catalytic Reactions Discovery and Development Laboratory. The focal point of this GOALI collaborative program is Merck’s High Throughput Experiments (HTE) facility, which will allow these two groups to collaborate on reaction discovery and optimization. Fundamental synthetic organic reactions of interest and importance not only to the pharmaceutical industry, but to the chemistry community as a whole will be explored to establish an inexpensive, permanent HTE facility at the University of Pennsylvania, which will in turn serve as a prototype that other academic institutions might adopt as a baseline tool for 21st century synthetic methods development.

With this award, the Organic and Macromolecular Program of the Division of Chemistry is supporting the groups of Professors Jeff Bode, Marisa Kozlowski, Gary Molander, and Patrick Walsh at the University of Pennsylvania, permitting them to advance their programs in synthetic methods development. Novel, more effective and environmentally sound methods for chemical synthesis are envisioned to arise from this program ? methods that can be implemented in the pharmaceutical, agricultural, and materials sciences sectors in the US and throughout the world.